SENSORS: Optical Whispering-Gallery Modes for Diverse Sensing Applications

This Sensor proposal focuses on transparent fused-silica microspheres, which support
whispering-gallery modes (WGMs)- light trapped by total internal reflection and orbiting just
beneath the surface. These modes, excited by optical tunneling from an adjacent tapered fiber,
have an evanescent component outside the surface and a very sharp frequency resonance (high
Q). The mode amplitude and resonant frequency can be very sensitive to changes in the
microresonator's environment, and thus enable sensing of, for example: strain, acceleration,
thermal effects, trace gases, chemicals, and modifications of the surface.
This project will: further develop and advance previously-demonstrated methods of
WGM evanescent-wave sensing of trace gases in the atmosphere and chemicals in solution;
extend earlier applications of WGM microsensors, in measuring thermal and absorptive
properties, to the characterization of transparent thin films; pursue novel techniques that enable
the multiplication of sensitivity enhancements, by combining effects such as modal interference
with WGM microsensing; and apply to WGM microresonators methods of surface preparation
that have proved useful in fiber sensors for gases, chemicals, and biological agents. In
accomplishing these objectives, all aspects of the project will benefit from: improving control
and coupling techniques, utilizing various redundant measurements to characterize WGMs,
studying the effects of changing system configurations, and expanding the numerical modeling
of the microsensors. Specific parts of the project will involve: implementing wavelength-modulation
spectroscopy with the WGM locked to resonance with a frequency-scanning laser,
and ruggedizing the sensor by attaching the coupler(s); measuring the thermal accommodation
coefficient and optical absorption coefficient of a thin film coating the microresonator; using
cavity ringdown of the scattered light, and applying controlled multimode-taper coupling to the
WGMs of the microresonator, to amplify its absorption-detection sensitivity; and combining
surface-enhanced Raman scattering with WGMs by coating the microresonator with a thin film
containing gold nanoparticles, as well as using the techniques of surface coating with xerogels or
antibodies for biosensing.
Intellectual Merit: Even a supposedly well-understood system can exhibit novel
behavior under extreme conditions, or when interacting with another system. The exquisitely
high Q of a WGM provides extreme conditions here, and interactions between WGMs and
surface or coupling effects give a multiplication of sensitivity-enhancement factors.
Broader Impacts: The graduate students involved will be learning fundamental physics
as well as becoming grounded in real-world applications; they will also be directly involved in
dissemination of results through conference presentations and peer-reviewed journal
publications. This work will benefit the University's multidisciplinary Photonics degree
programs and its interdepartmental Center for Sensors and Sensor Technologies. The sensing
techniques to be developed here have many potential benefits to society, as has already been
recognized by the Oklahoma Center for the Advancement of Science and Technology, NASA's
Marshall Space Flight Center, and Nomadics, Inc., through their support of and collaboration on
related work.